Support of 12th Cambridge Workshop on Cool Stars, Stellar Systems, and the Sun to be held in Boulder, Colorado

Ayres, Thomas
AST-0119327

This award will be used to partially support a workshop on cool stars, stellar systems and the Sun. It is one of a regularly held series and is titled "The Future of Cool-Star Astrophysics". It will be held between July 30 and August 3, 2001 at the University of Colorado, Boulder CO.
***